Applications of Bargaining and Game Theory to Political Philosophy

The aim of the project is to develop models in which the information which is salient for problems of political philosophy can be represented and incorporated into a formal theory. Various axiomatic approaches in bargaining theory, cooperative game theory, and non-cooperative game theory are adapted and used to rigorously derive implications for economic policy of different political philosophies. The project develops new tools for modelling problems of distributive justice. These tools do a better job of capturing our intuitions about distributive justice and related ethical questions because they include information about property rights and about the distribution of physical objects which fulfill various needs and desires. Past models of social choice focus only on the distribution of utilities and abstract from the characteristics of economic environments. This formal theory is developed and applied to actual resource allocation problems. For example, suppose an international organization such as the World Health Organization takes as its objective to distribute its limited resources in such a way as to equalize the opportunities that all countries have to achieve an improvement in their rates of infant mortality. The distribution of resources across countries consistent with fundamental principles of justice can be rigorously derived from this theory.